SBIR Phase I: Robust Porous Ceramic Structures Enhanced With Natural Biomaterials for Water Purification

This Small Business Innovation Research (SBIR) Phase I project will address the problem of
a shortage of pure drinkable water by developing a new portable water purification filter coated
with natural polymers. Initially the developed filters will be utilized for use in personal water
purifiers, later expanding the development of the filter for use in municipal water purification
systems. The development of this green technology based water treatment system will result in a
novel water purifier that is inexpensive, fast acting, simple to use, disposable, easily used in
developing countries, and has minimal impact on the environment. Furthermore, there would be
no formation of harmful disinfection by-products.
The broader/commercial impacts of this research are the provision of an inexpensive, all
natural portable water purification system that will provide good safe potable water, particularly
in third world countries. At risk drinking water can contain a variety of pathogens that can
include heavy metals, harmful bacteria, parasitic cysts, cryptosporidium organisms and viruses.
The best methods to date for removing these pathogens are UV irradiation, ozonation, and
boiling/distillation, with each of these water purification techniques requiring energy and support
systems that are not readily available for remote areas and situations. Other more portable water
treatment methods are not as effective, inconvenient, subject to failures that many times cannot
be easily detected, and/or supply poor tasting water. Therefore, there is a great need for the
development of water purifiers that contain natural polymeric coatings that remove and/or kill
diarrheal diseases-causing bacteria and can also remove heavy metals from water. The proposed
all natural water purification system is intended to remove and/or neutralize all of these multiple
water impurity elements. An established water purification company will be a partner in this
project so as to expedite the commercialization of this developed technology into the
marketplace.